What Controls Earthquake Size & Occurrence?

What controls earthquake size and occurrence? Scientists and non-scientists alike have pondered this question for a longtime. Earthquakes are a complex and wonderous natural phenomenon that unfortunately can also cause great human catastrophes; the hazards range from near-source ground shaking to tsunamis that can strike from across the Pacific Ocean. Plate tectonics provides the framework to explain plate boundary earthquakes as a direct consequence of the plate boundaries, what controls exactly wherean earthquake will occur; how large it will be; and when it will happen? To answer these questions, seismologists must look closer at the plate interface zone. In fact, it is necessary to "look inside" the earthquake rupture areas. Heuristic arguments (plus some direct observations) clearly indicate that the processes and properties of plate interface zones cannot be spatially homogeneous - spatial heterogeneity is required to explain seismicity. A first-order categorization of fault zone heterogeneity is the simple binary classification of strong/weak.The strong regions are "stuck" and accumulate the tectonic strain, to be finally released by rupture in large earthquakes. We call these strong regions asperities. One of the excitingrecent developments in earthquake seismology is that we are now moving from the mere acceptance of spatial heterogeneity to actually mapping the first-order representation of this heterogeneity along plate boundary segments.